Nonlinear Waves in the Ocean and Atmosphere and Numerical Algorithms

9986368

This is a multi-disciplinary project to examine a variety of non-linear
wave processes in the ocean and atmosphere as well as attempting to
refine some of the numerical methods used to model the dynamics of
geophysical fluids. The former are problems relevant to both atmospheric
and oceanic sciences and include baroclinic wave packets, tropical
instability waves, and mesoscale (in the atmospheric sense) solitary
internal gravity waves. In addition, the PI will address computational
mathematics issues associated with some of the spectral and
spectral-element codes used in geophysical problems, particularly
the issues of filtering and compatibility conditions.